Presidential Young Investigator Award: Nonlinear Optical Studies of GaAs Heterostructures and Optical Fibers

The efforts relate to the utilization of optics to carry out data processing. This includes the guiding of light, coupling light between fibers and devices, developing nonlinear devices for optical interactions, and encoding and decoding.